Sperm Receptors On Mouse Eggs

The long term objective of the proposed research is to identify the sperm receptor(s) on the surface of the mouse oocyte, characterize it biochemically and study its functional role in fertilization. although the sperm receptor(s) in the zona pellucida continue to be the focus of important research on mammalian fertilization, evidence argues that there must be an oocyte surface protein that mediates fertilization proper between egg and sperm. Research proposed in this application will identify the sperm receptor and raise antisera against it. Dr. Calarco's preliminary work identifies a limited number of candidate proteins and also shows that the known cell adhesion protein, uvomorulin, is not preset on unfertilized eggs. The specific aims are: 1) To determine which surface proteins(s) on the zona free unfertilized egg are required for the egg to bind sperm and undergo fertilization. Initially, Dr. Calarco will compare, by gel electrophoresis, labeled oocyte surface proteins before and after protease treatment (which renders eggs infertile), and before and after fertilization; and 2) To demonstrate which of the putative sperm receptors from unfertilized eggs function in an in vitro assay as a sperm receptor. This will involve blocking fertilization of zona free eggs with polyclonal antisera made against proteins identified on 1-D gels. After initially using polyclonal antisera to isolate receptor(s), she will prepare monospecific antisera for all subsequent studies. %%% Information gained from the proposed research is relevant to problems of infertility, normal and abnormal development as well as contraception.